HI-TEC: Heightened Interest in Technical and Engineering Careers

The Bellcore project, "Heightened Interest in Technical and Engineering Careers (HI-TEC)," refines and replicates a project that has been underway in six New Jersey school districts since 1989. Forty teachers from fourteen schools have joined engineers, scientists, and administrators in planning and attending a 20-day summer math, science, computer and learning innovation institute. In the fall, the scientists will join the teachers in the classroom. Computer links will enable students to obtain answers to questions about science. The target group is elementary and middle school teachers, with a focus on women and minorities.